Great Lakes Geometry Conference, October 30 - November 2, 2008

Geometry and topology, always central areas or research in mathematics, have experienced tremendous developments in recent years. In particular, the fields of geometric analysis, low-dimensional topology, gauge theory, symplectic and contact geometry, Gromov-Witten theory and Teichmuller theory have all flourished. Another important theme in recent years has been the interaction between geometry/topology and physics. The next Great Lakes Geometry Conference will bring experts to the University of Michigan to exchange ideas on important recent developments in these areas.

The Great Lakes Geometry Conference is a well-established international conference series. The aim of this conference is to bring together distinguished speakers in a variety of areas in geometry, topology and mathematical physics which will benefit students and early career mathematicians at the University of Michigan and other Midwestern institutions.